Earth Game

Earth Game is a five-day simulation, modeled on the war games the military have staged for a hundred years. An international group of scientists, diplomats and political experts will react to a simulated environmental crisis caused by global climate change. The period of play is 1995 to 2010. The proceedings will be videotaped and edited into four hours of television programming for international broadcast to a general audience in the spring of 1992. Earth Game is a project of WQED with the Smithsonian Institution, the British Broadcasting Corporation, Adrian Malone Productions, and the U.S. Naval War College. The objectives are: 1.) to stimulate greater public and governmental interest in the subject of climate change; 2.) to foster greater understanding of what we do and don't know about the causes of climate change, and 3.) to develop a greater appreciation of the dilemmas posed by the need for political action in the fact of the threats and uncertainties surrounding climate change. Senior Smithsonian scientists, Naval War College game design experts, the distinguished television producer Adrian Malone, and a small group of advisers are planning the event, which is scheduled to take place in Newport, Rhode Island in November 1991 at the historic facilities of the Naval War College.